CAREER: Compiler-Inserted Runtime Adaptation for Multicore Processors

Increases in the number of cores in multicore processors have lead to
increases in the architectural and environmental diversity present in
computer systems: the number, complexity, and mix of available cores
vary greatly and the resources allocated to an application differ from
run-to-run and within runs.

Diversity has a significant impact on application performance;
applications must adapt to differences in their architecture and
environment to achieve good performance. However, developing adaptive
applications greatly increases the difficulty of writing efficient
parallel programs while increasing the level of skill required to
write a parallel application, and may therefore limit programmers'
ability to write parallel applications and take full advantage of
multicore processors.

This project develops and disseminates new compilation techniques and
runtime adaptation strategies in which a compiler analyzes the
concurrency and locality features of an application, selects a runtime
adaptation strategy based on these features, and adds adaptation to
the application. Key contributions address the challenges of
discovering and representing concurrency and locality and selecting
adaptation strategies based upon application characteristics.

These new compilation techniques and adaptation strategies will free
programmers from the need to concern themselves with architectural and
environmental diversity when writing parallel applications. This
freedom will then enable a wide variety of applications to benefit
from multicore processors, thus ensuring that multicore processor
systems will be able to live up to users' increased performance
expectations.